Workshop in Plant Reproductive Biology

This is a proposal to offer a summer workshop for undergraduate faculty in plant reproductive biology pollination biology and plant reproduction for undergraduate research and curricula. The workshop will include a mixture of lectures, laboratory, field work and short individual research project. Pollination biology and plant reproductive biology will be the emphasis because the subject can be approached from a wide range of disciplines which makes it an excellent topic for application to a variety of undergraduate courses and research projects which will later be incorporated into individual courses.